Wetland Creation, Restoration, and Enhancement Guide

9353030 Garbisch The intent of this project is to prepare a guidebook for students and teachers of grades 7-12 that will encourage, facilitate, and guide the creation, enhancement and restoration of wetlands. The guide is expected to be about 150 pages in length and will be divided into two parts. Part I will provide information on the common wetland types with integrated learning activities. Part II will include information on identifying potential sites for implementing the project and will include the information necessary to achieve these objectives. The guide will also include information on ecological functions, hydrologic regimes and plant communities of wetlands. It will provide an alternative for hands- on projects that will result in a school yard habitat well suited for student monitoring, research and instructional activities. An urban wetland restoration project will be selected to field test the project.